U.S.-Mexico Cooperative Research: Theoretical and Experimental Studies of Nucleon Transfer Reactions in the Vicinity of Fermi Energy

This award will support Professor Akif Baha Balantekin of the University of Wisconsin, Madison and Professors W. A. Friedman and K. W. McVoy of the Lawrence Berkeley Laboratory in collaborative research with Professors E. Chavez, A. Dacal and M. E. Ortiz of the Instituto de Fisica de la Universidad Autonoma de Mexico (IFUNAM) in Mexico City, Mexico. The investigators plan to undertake the theoretical analysis and interpretation of detailed measurements involving primary fragments produced in peripheral collisions of heavy ions at intermediate energies. The proposed theoretical analysis and interpretation of these results is to occur at two levels, both of which involve the collaboration of theoretical and experimental physicists. The first level is concerned with the determination of the characteristics of the primary reaction products through a combined consideration of simple reaction models, Monte Carlo calculations, and properties of the detection system. The second level consists of interpreting the deduced cross sections for nucleon pickup and stripping in terms of the theories of heavy ion transfer and inelastic scattering. The proposed work has the potential to increase our understanding of heavy-ion reaction mechanisms at intermediate energies. The collaboration between Mexican experimentalists and U.S. theoretical physicists continues past successful work, each side bringing complementary skills to a research project of much current interest.